Dissertation Research: Effects of Landscape Structure on Distribution of the Mountain Viscacha in Patagonian Steppe

9972717
Branch

The objective of this research is to evaluate how dispersal and landscape structure affect the distribution of animals in fragmented habitat. The study focuses on the mountain viscacha, a rabbit-sized, rock-dwelling rodent, in the Patagonian steppe of Argentina. The researchers predict that mountain viscachas disperse more easily over rocks than through open steppe. Because colonization of habitat patches depends on successful dispersal, the spatial arrangement of those habitat patches and barriers such as rivers in an area determine the local distribution of the species. The researchers use distributions of gene frequencies in DNA obtained from feces to infer past patterns of dispersal. Relationships among distribution of the species, gene frequency distribution, and landscape features (e.g. the spatial arrangement of cliffs, rivers, and open steppe) are analyzed with a geographic information system (GIS).

An increasing number of animal populations are restricted to remnant patches of suitable habitat. Understanding the processes that determine persistence and distribution of these populations is critical for their conservation. This research integrates molecular ecology, population biology, and landscape ecology to empirically test predictions regarding the distribution of populations in fragmented habitats. This interdisciplinary approach may provide new insights into how animal populations in fragmented habitats are affected by landscape structure and, effective means of designing reserves and other conservation strategies for these species.